Status Power and Accounts

This project investigates the normative structure of explan- ations for actions. The investigation is based on sociological theories of the need to develop 'accounts,' acceptable explana- tions for potentially disruptive acts. Hypotheses tested are: (1) that acceptance of explanations increases with the degree of agreement upon norms of acceptable behavior; (2) that independent of norms, acceptance increases if the person offering an explana- tion has high status; (3) that role and status expectations determine what type of accounts are most acceptable; and (4) that where dissension exists on norms, higher levels of justifications are required. Implications for support or disconfirmation of each hypothesis, in terms of several competing theories, are stated. The project uses controlled social experiments to create norms, violations, and justifications, to test the hypotheses.